Experimental, Theoretical and Computational Study of Compressed Thin Films Diaphragms

Experimental, Theoretical, and Computational Study of Compressed
Thin-Film Diaphragms

Alberto M. Cuitino and Gustavo Gioia
Department of Mechanical & Aerospace Engineering
Rutgers University
Piscataway, NJ 08854-8058

Experimental, theoretical, and computational research is planned to
study the mechanics of anisotropically compressed thin film diaphragms.
The project is motivated by experimental results which indicate that
the behavior of anisotropically compressed diaphragms is fundamentally
different from that of isotropically compressed ones. Thus, in lieu of
the well-behaved folding patterns which obtain in the isotropic case,
the anisotropic case leads to microstructures, i.e. fine folding
patterns which lack a length scale associated with the boundary
conditions. These microstructures are symptomatic of the spinodal
structure of the underlying energetics.

Experimental work will yield quantitative information on the range of
stress states for which folding microstructures occur, the dependence of
microstructure configurations on such factors as stress state history
and diaphragm size, and the regularizing effect of bending on folding
refinement. The theoretical work will allow to determine the appropriate
energy functionals, characterize the associated minimizing sequences,
and develop the capability to engineer diaphragms with folding patterns
suited to specific purposes. Computational tools will be developed for
detailed comparison with theoretical results, and for use in practical
cases which are not amenable to theoretical treatment.